A Program in Experimental Atomic Physics

Work is proposed in three areas of experimental atomic physics. 1) Continuation of research on the structure of Rydberg atoms in a strong magnetic field. Recently developed apparatus has increased the spectral resolution in this area by a factor of one hundred, opening the way to the new study of the structure of atoms in a very strong field regime, and of the transition to chaos in a quantum system. 2) Continuation of research on the remeasurement of the Rydberg constant in hydrogen by millimeter wave transitions in Rydberg states, with a design goal for accuracy of 1 part in 1011. 3) Exploratory work on laser spectroscopy of hydrogen in the micro Kelvin regime, with the goal of studying the properties of hydrogen at low temperatures, and carrying out high resolution spectroscopy.